Engineering Safe Artificial Intelligence for Autonomous Vehicle Decision Making and Motion Planning

Autonomous vehicles are increasingly expected to operate in complex environments where they must interpret changing conditions, make mission-level decisions, and plan safe motions with limited human supervision. Examples include maritime search, transportation, environmental monitoring, search and rescue, defense operations, and future robotic systems that assist people in difficult or hazardous settings. However, any current methods treat decision making and motion planning as separate problems, which can reduce mission performance and make it difficult to guarantee safety when conditions change. This project will develop new engineering tools that allow autonomous systems to choose tasks and generate safe trajectories concurrently. The work will advance artificial intelligence for physical autonomous systems by connecting high-level decision making with mathematically certified motion planning. The project will be motivated and evaluated through maritime mine countermeasure missions involving teams of underwater and surface vehicles. The expected outcomes include new mathematical tools, open-source software, and experimental demonstrations that can help translate advances in artificial intelligence and control into safer autonomous robotic systems. The project will also support education and workforce development by integrating autonomous vehicle experiments into undergraduate and graduate courses and by engaging students in hands-on robotics activities.

The technical objective of this project is to advance numerical optimal control methods for artificial intelligence-enabled autonomous systems that must solve concurrent decision making and motion planning problems. The research will develop a direct optimal control framework based on segment-joined polynomial approximations, with emphasis on Bernstein polynomial representations because of their geometric properties, numerical stability, and usefulness for enforcing safety constraints along continuous trajectories. The project will establish feasibility and convergence results for these approximations, including error bounds that relate polynomial degree, number of segments, and constraint satisfaction. A second component will develop a real-time control framework that accounts for computational delay and trajectory switching caused by online replanning. This analysis will use tools from internal model principle-based control, hybrid systems theory, and nonsmooth dynamical systems to derive robustness and stability conditions. A third component will implement the theory in an open-source software platform with interfaces for common programming environments, automated initialization tools, and benchmark examples. The framework will be evaluated in simulation and through indoor and outdoor experiments with autonomous maritime vehicles, using metrics such as computation time, mission performance, and safety margins.